MIE: City College Model Institutions for Excellence Program Planning Grant

9354129 Barba City College will undertake a planning process involving a comprehensive assessment of its institutional needs in science and engineering education and the needs of the minority students enrolled as majors in these programs of study. The results of this assessment, along with the examination of exemplary programs at other institutions, will lead to the development of a broad- based, long-term plan to guide the College as it builds its capability to recruit, educate and graduate significantly more minority students in science and engineering fields. Important partners in the planning process will be representatives from business and industry, professional organizations, community colleges and the New York City public schools. Although the experiences and needs of all minority students will be considered in the planning process, particular attention will be focused on Hispanic students.